The Inverted Coupler Curve Method for Path Generation

Mechanism synthesis can be accomplished by many methods. One of the more popular techniques is the Burmester Theory. The principal investigator proposes the development of an alternative method, the Inverted Coupler Curve Method, which has significant advantages over the Burmester Theory. Such improvement can have a significant impact on four-bar linkage design. Linkages hold the promise of higher speed for automatic machines when compared with cam mechanisms.